Oceanographic Instrumentation

0097241
Freitag
This award to University of Rhode Island's Graduate School of Oceanography provides instrumentation to significantly improve the oceanographic research capabilities of the research vessel Endeavor, an NSF-owned ship operated by URI as part of the University-National Oceanographic Laboratory System research fleet. The echosounder and acoustic Doppler current profiler supported here will replace aging systems with modern ones, providing state of the art capability to all ocean researchers using the ship. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***